Materials Research Science and Engineering Center

The Materials Research Science and Engineering Center (MRSEC) known as the Center on Polymer Interfaces and Macromolecular Assemblies (CPIMA) at Stanford University is a partnership among research groups at Stanford University, IBM-Almaden, and the University of California Davis. The center supports interactive research through three interdisciplinary research groups. The group investigating macromolecular design for enhanced film properties aims to design and synthesize novel polymers which have unique optical and electronic properties, and then characterize their equilibrium and dynamical behavior when they are constrained by interfaces. Researchers in the group focused on ultrathin films aim to design and synthesize substrate-bound ultrathin organic films that mediate the chemical and physical interactions between the substrate and an adjacent overlayer. Investigators in the group investigating the dynamics of interfacial processing seek to understand the interfacial transport processes that occur during the fabrication of ultrathin films of polymers and polymer-based nanoncomposite materials. The center also supports the development, operation and maintenance of shared experimental facilities for materials research. It provides seed funding for exploratory research, and fosters research participation by undergraduates. The center has educational programs from high school to the graduate level and carries out collaborative research with industry. The center currently supports about 16 senior investigators, 12 postdoctoral research associates, 2 technical staff members, 18 graduate students, and 6 undergraduates. This MRSEC is directed by Professor Curtis W. Frank.